Biogenic hydrogen production under geological carbon storage conditions

Depleted oil reservoirs may hold an unexpected new energy opportunity: the natural production of hydrogen from residual oil. This research studies how waste products from oil and gas extraction can be supplied with nutrients and injected into depleted oil reservoirs to stimulate microbes that produce hydrogen. The results could open the door to a low-cost method of producing hydrogen as a new energy source, using existing infrastructure in the oil and gas industry. Beyond this technological impact, hands-on opportunities will be provided to a workforce trained in chemistry, microbiology, and engineering. By deepening our understanding of the role that microbes play in the production of hydrogen as an energy source, this work contributes to powering strong economic prosperity by unleashing additional sources of energy from depleted oil reservoirs.

Microbial communities in depleted oil reservoirs can survive geologic carbon storage conditions, including hydrogen-producing microbial species. Preliminary results suggest that the supply of protein-rich matter under the acidic conditions created when carbon dioxide dissolves into petroleum-produced water boosts the activity of hydrogen-producing microbial species and simultaneously inhibits the activity of hydrogen-using microbial species. Building on this knowledge, this project will characterize and quantify biogenic hydrogen production using actual reservoir rock, petroleum-produced water, and oil samples from depleted oil reservoirs in the Anadarko Basin of Oklahoma. Experiments will be conducted at conditions representative of those expected during geological carbon storage, using protein-rich matter as the source of essential nutrients. Additionally, this research will enhance a computer model to enable case-by-case predictions of where, how, and how much in-situ hydrogen can be generated.